FHL Marine Biochemical/Molecular Laboratory

The Friday Harbor Laboratories (FHL) is a marine biological field station of the University of Washington located in the San Juan Islands at the junction between Juan de Fuca and Georgia Straits. There is an unusual richness of marine life in the region attracting scientists in widely divergent fields from national and international universities and research institutions. Topics of research range from molecular and cell biology along a scale of increasing spatial dimensions to community ecology. Zoologists, fisheries biologists, oceanographers, botanists, paleobiologists, and researchers from various biomedical fields are frequent users. Highest priority is given to maintaining a suitable environment(instrumentation, field biological resources, logistical support, housing) for research involving marine organisms. Over 90% of the FHL operating and capital budget is provided by the State of Washington although over 2/3 of the scientific people whose work is supported by FHL are from institutions outside the State of Washington. This will support a 2,700 sq. ft. laboratory for modern biochemical and molecular research.